Convexity, Topology, Combinatorics and beyond: An international conference

The award will support an international workshop on the mathematics at the
intersection of convex geometry, topology, and combinatorics, or convex
topological combinatorics, for short. This is an important topic because
convex geometric and topological techniques have become a main tool in
discrete mathematics and theoretical computer science. In fact, convex
topological combinatorics has had a impact in application areas such as
algorithm design, computer graphics, mathematical programming, solid
modeling, and computational biology. At the same time, topology and
geometry have benefited from the study of combinatorial structures such as
convex bodies, polyhedra, simplicial complexes, geometric graphs, etc.,
because they appear naturally in relation to important algebraic and
topological spaces such as Grassmanians, toric varieties, configuration
spaces, and others.

This workshop will be the first large international conference in
North-America on the topic of convex topological combinatorics. The event
intends to bring together top international researchers to discuss
developments in these intersecting fields. Besides specific mathematical
research, the meeting will increase the cooperation between mathematical
schools in the USA and Mexico, both of which have many strong researchers
in convex topological combinatorics and a good number of Ph.D students
doing research in these topics. Both groups will benefit from the
interaction that the conference will bring.